ISE Research Instrumentation

A "Supercomputer Prototype System" will be provided for researchers at the University of Colorado for research in the Department of Electrical and Computer Engineering. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering Program. The research for which the equipment is to be used will be in the area of state-of-the-art logic synthesis applications